Integrated PC-Instrument Workstation Laboratory

The senior-level electrical engineering laboratory facilities at this institution have been upgraded to better prepare the students for productive roles in industry. This project provided laboratory workstations that allow students to integrate analysis and design software tools with measurement instrumentation. The integrated workstations allow the faculty to not only cover traditional electronic circuit problems in much greater depth, but also allow coverage of a much broader range of topics. The major components of the workstation consist of the Hewlett-Packard PC Instrumentation System, an 80283- based AT configured with a floating-point co-processor and a 71Mbyte hard disk, and the ASYST signal analysis software. With the workstations, students are able to efficiently move between analysis and measurement which facilitates the iterative approach to circuit design. An additional benefit is student familiarity with automated measurement systems similar to that found in the automatic test environment in industry. This award is being matched by an equal sum from the grantee.